The role of input energy in assessing seismic hazard and damage following the Turkey earthquakes

CMS-0085301
Manuel

The Role of Input Energy in Assessing Seismic Hazard and Damage following the 1999 Turkey Earthquakes

The main focus of this study is to examine the extent of correlation of energy-based descriptors of ground motion with the observed spatial distribution of damage during the recent 1999 earthquakes in Turkey. Of secondary interest is a comparison between more conventional strength-based descriptors (such as spectral acceleration) and these energy-based descriptors.

Probabilistic seismic hazard analyses will be performed using both of these frequency-dependent ground motion parameters. Revised attenuation models including data from the recent earthquakes (with emphasis on recorded near-fault motions) will enhance the current database and reduce uncertainty in hazard estimates. Whenever soil profile information is available, attempts will be made to include site effects in the hazard estimates.

Damage data for short-period industrial structures and for residential and office buildings will be collected from various regions and will also be correlated spatially with input energy and spectral acceleration demands.

Products of this study will include new predictive attenuation models as well as an understanding of the importance of energy-based ground motion descriptors and of the role of site effects on seismic hazard and on damage to short- and long-period structures.